Molecular Cloud Spectroscopy at Submillimeter Wavelengths

This grant supports a collaboration between a group at the University of Texas, led by Dr. Frank Bash, and the California Institute of Technology Submillimeter Observatory (CSO) with the objectives of improving the performance of the CSO telescope on Mauna Kea, Hawaii at the shortest wavelengths, providing instrumentation for observing in the submillimeter wavelength region of the spectrum, and exploiting the capabilities of the telescope for scientific problems which require submillimeter- wave observations. The process of star formation is an area in which interest has been recently enhanced with developments in instrumentation and techniques for observations. Because of the presence of obscuring material, the depths of star forming regions can only be probed with observations in the millimeter, the submillimeter, and the far infrared regions of the spectrum. The principal scientific areas to be pursued by the University of Texas group using the CSO telescope are the formation of stars out of interstellar matter and the structure of galaxies as outlined by molecular material.